Behavioral Sciences Laboratory Instrumentation

A Behavioral Sciences Laboratory is being established specifically dedicated to support of student research projects, including those required in research-related courses as well as those of individual students. The IBM AT computers, related hardware, and SPSS/PC Plus Statistics and Graphics software package is greatly enhancing the level and sophistication of student research projects assigned for all students in the Anthropology, Sociology, and Psychology research sequence. The students are gaining hands-on experience in creating, storing and manipulating their data files. They are doing basic to complex descriptive and inferential analyses and graphic presentations of their data. These research capabilities are greatly enhancing the existing curriculum by providing students with an up-to-date, technologically advanced learning experience in behavioral science research.